Symposium: Dispersal of Marine Organisms Symposium at the Society for Integrative and Comparative Biology Meeting, Charleston, SC Jan 3-7, 2012

This award provides support for a symposium entitled Dispersal of Marine Organisms at the January 2012 Society for Integrative and Comparative Biology (SICB) meeting in Charleston, SC. The world’s oceans hold a significant fraction of the diversity of organisms on the planet. Understanding where, when and how populations of organisms are distributed in the ocean is a central and significant topic in marine biological research. Fundamentally, the dispersal (movement) and distribution of marine organisms results from an integration of both the physical and biotic environmental characteristics with organisms’ biological characteristics, such as physiology and behavior. Often, however, research on dispersal tends to emphasize a particular discipline (e.g., population genetics, functional morphology, developmental biology, physiology, biophysics), or to emphasize a particular group of organisms (e.g. fish, marine invertebrates). This symposium assembles an interdisciplinary group of outstanding young and established speakers to address the broad issue of dispersal in marine environments in an integrative way. Such integration is increasingly important to marine conservation and management efforts. The goal of the symposium is to promote the exchange and integration of ideas and knowledge of dispersal across disciplines, and to identify scientific opportunities and approaches for future research that will accelerate understanding. Participants will be encouraged to consider the common properties that influence dispersal across different species, and to discuss what currencies should be measured in order to predict how dispersal of marine organisms will be influenced by environmental change.

The invited symposium speakers represent a diverse scientific perspective and include established experts and early career scientists, men and women. Additional researchers will present their findings in contributed sessions and the project contributes to student training by inviting and providing financial assistance for up to ten graduate students or postdoctoral researchers to present in these complementary sessions.